An Integrated Approach to Improving Design-Time and Run-Time Confidence

Proposal Number: CCR-9988409
PI: Lee, Insup
Co-PI: Sokolsky, Oleg
University of Pennsylvania
An Integrated Approach to Improving Design-Time and Run-Time Confidence

The proposed research addresses two ways to improve confidence in
software systems: design-time analysis and run-time monitoring. The
design-time analysis is to verify design specifications with respect
to requirements, whereas the run-time monitoring is to assure that an
implementation is behaving as required. The proposed research will
improve design-time analysis by means of domain-specific extensions to
analysis techniques and tools. An extension for a chosen domain will
be based on specification patterns typical of the domain, and on
domain-specific abstraction mechanisms. Furthermore, the design-time
analysis approach will be integrated with the run-time monitoring and
checking approach. Since the success of this integration work will
depend on the characteristics of specific domains, the identification
of such characteristics will be part of the proposed work. The
proposed work will be performed in the context of framework for
end-to-end system development of high confidence software, based on a
suite of methods and tools for the specification, analysis,
development, testing, prototyping, simulation and monitoring. The
integration of design-time analysis and run-time monitoring is the key
novel aspect of the proposed work. The proposed work will be
evaluated on a collection of applications chosen to represent domains
requiring high confidence and real-time requirements, such as embedded
systems and electronic commerce systems.